Wireless Internet Connectivity Trial

This award is made under the innovative technology connections portion of NCRI's "Connections to the Internet" announcement, NSF 96-64, which covers K-12 education institutions (including vocational technical schools), public libraries and museums. It provides partial support for two years to connect ten educational sites to the Internet using a microwave technology known as Multichannel Multipoint Distribution Service (MMDS). NYSERNet is working with CAI Wireless Systems, Inc. for this trial.